Meeting the Needs of Students through a Next Generation of Science-Teacher Leadership in Nebraska

This project aims to serve the national interest by developing outstanding and highly qualified science teacher-leaders in secondary schools to address four critical needs of regional and national importance. The first is to retain mid- and late-career science teachers in their schools. The second is to provide high-quality science teaching that is responsive to a broad range of student learning needs. The third is to promote strong subject matter knowledge for teaching secondary science. And the fourth need is to support the adaption of Grades 6–12 science curriculum to meet the Next Generation Science Standards. Evidence suggests that teachers must have access to ongoing, high-quality professional development and learning opportunities to improve their pedagogical skills and remain motivated to stay in the teaching profession. This project will provide responsive professional development, statewide networking opportunities, and educational degree advancement to exceptional secondary science teachers in Nebraska. Participating teachers will complete an educational specialist degree, a teacher-designed leadership project focused on improving science learning outcomes, and National Board Certification. In summary, this project aims to expand access to high-quality science education for students in Nebraska. It has the potential to inform multiple models for effective science teaching, which will be broadly disseminated nationally.

This project at the University of Nebraska–Lincoln (UNL) includes partnerships with the two largest Nebraska school districts (Lincoln Public Schools and Omaha Public Schools) and one lead rural school district (Grand Island Public Schools). The goal of this six-year project is to strengthen science education in Nebraska by recruiting 26 in-service science teachers to become teacher-leaders through an educational specialist degree program and long-term professional development. In conjunction with professional development, the project will use systematic data collection and analysis to investigate research questions regarding what teacher-leaders learn, how they use key concepts from coursework to design their leadership projects, the extent to which teacher-leaders generate leadership projects that attend to and facilitate knowledge about variation in students’ learning, and how teachers’ personal and statewide professional networks change over time. The project will be evaluated using qualitative and quantitative methods with a longitudinal design to compare outcomes over time and assess progress toward meeting project goals. Project research and evaluation will produce new fundamental knowledge of effective teacher-leader development models, reform-based science teaching practices, and high-quality science education in Nebraska and beyond, which will be disseminated via conferences, peer-reviewed journals, and a UNL-supported website. This Track 3, Master Teaching Fellows project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports experienced, exemplary K–12 teachers to become STEM master teachers. It also supports research on the persistence, retention, and effectiveness of K–12 STEM teachers in their school districts.